Chaos and Collectivity in Nuclei

9512831 Zelevinsky The proposed research is aimed at clarification of key problems in collective phenomena and quantum chaos. Quantum chaotic dynamics is a common phenomenon in many branches of physics. The knowledge accumulated in the model studies has to be applied to realistic quantum systems. The first steps are already carried out in physics of atoms, molecules and disordered solids. Nuclear structure and reactions give a generic example of a quantum many-body system with strong interaction where we can make progress both in understanding quantum chaos and in specific problems of nuclear physics. The applications include onset of chaos in nuclei; common features and differences between "one-body" and "many- body" chaos; coexistence and complex interplay of regular and chaotic dynamics; damping of collective motion; phase transitions, thermalization and decoherence in a closed mesoscopic system with no external heat bath; chaotic dynamics and collectively in an open system with finite lifetime and in loosely bound nuclei; enhancement of weak interactions in compound states. Application to other systems including random meson fields and the structure of physical vacuum also should be explored.